End-User Tracing for Software Replay

Software bugs currently cause the large majority of computer failures.
Unfortunately, the current culture of software development tolerates the
release of software with numerous bugs. The best solution to this phenomenon
is more thorough testing. This project seeks to increase the amount of testing
and effective debugging undergone by modern software. This research enables
end users to serve as effective testers by tracing a program's execution
automatically and submitting the trace as a bug report. Such traces contain
all information needed for the software developer to reproduce the failure,
even if that failure is non-deterministic. The goals of this trace-and-replay
system reflect the end-user environment it is targeted for. The tracing system
should have low-enough overhead to be left on during normal use. The tracing
system should translate or encode the trace to maintain the user's privacy.
The trace-and-replay system should be easy to use by the end user; for example,
it should not need to modify the kernel or system libraries. If successful,
the resulting system will dramatically increase the base of effective testers
and hopefully result in more reliable software.